Totally Synthetic Heme Protein Models

Among the most important molecules in biological systems are the heme proteins, which transport molecular oxygen, mediate its utilization by living things, and carry out a variety of other functions related to electron transport. At the center of these proteins is an iron atom bound to a cluster of four nitrogen atoms, the so-called heme group. This project is an ongoing effort to synthesize relatively small molecules which mimic the functions of heme proteins. Such synthetic molecules are expected to be useful not only as models of the biomolecules, but also as oxygen carriers for industrial and medical applications. This is a renewal of an active NSF grant. Totally synthetic substances are being designed which reproduce the functions of heme proteins. Emphasis is on modeling those heme proteins that form iron-dioxygen adducts as they function. Ongoing studies first produced rare examples of iron dioxygen carriers that do not utilize the porphyrin ligand and structural refinements yielded examples that are fully functional under ambient conditions. Further studies should generalize the structural principles that have evolved and lead to predictive control over oxygen affinities. Kinetic and mechanistic studies are planned which will provide insight into the fundamental processes of binding and dissociation of oxygen and the autooxidation of iron oxygen carriers.